Purchase of a Heat Flux Calorimeter

Calorimetry has been extensively used for the study of physical transformations and for the investigation of the kinetics of both homogeneous and heterogeneous chemical reactions. The methods is based upon the colligative properties, where the heat changes of the reactions are monitored. Calorimetric measurements are useful in studying catalyst surfaces and polymers. This award from the Chemistry Instrumentation Program to the Department of Chemistry at Florida International University, an undergraduate institution, will help acquire a Heat Flux Calorimeter. The acquisition will enhance the ability of the Department to educate undergraduate students and will enhance chemical research in the following areas: 1. Thermodynamic Study of Precursor Complex Stability in Inner Sphere Electron Transfer Reactions 2. Comparison of Calorimetric and Gas Chromatographic Measure- ments of the Thermodynamics of Molecular Association in Liquid Organic Salts 3. Calorimetric Studies on Oligomers Containing B-Z Junctions 4. Preliminary Studies on the Heat of Metalation of Cyclic Tetraphyrroles